Textural Constraints on Pumice Formation and the Development of Permeability in Silicic Magmas

9418008 Cashman Processes of volatile exsolution and gas expansion strongly influence eruptive styles of volcanoes. For this reason, rates and mechanisms of magmatic vesiculation have long been a fundamental question in volcanology. The relationship between pumice clast vesicularity, vesicle structure, permeability, and eruptive style will be determined by (1) making detailed structural measurements of pumice clasts; (2) developing techniques for determination of pumice permeability in both the solid and the liquid state, and (3) making experimental measurements of rates of bubble coalescence through use of a microscope-based heating stage and video recorder. This work will provide critical new data that are necessary input to rapidly-developing models of magma ascent, fallout of tephra eruption columns and magmatic fragmentation.